Personal Injuries and Legal Consciousness in Thailand: The Role of Law

This research explores legal consciousness and personal injury in a Southeast Asian society radically transformed by globalization. It explores concepts of self and community, injury and remedy, legal and non-legal responses to harm, and ideas about causation and responsibly in Chiangmai, Thailand. The research represents an unusual opportunity to address questions about law, social change, and civil litigation that are fundamental to the field oaf law and social science and to extend such questions beyond conventional frameworks by asking how the intensification of global interactions affects litigation and other practices and perceptions of personal injuries. Methods being used to collect data include textual analysis of personal injury casefiles in the provincial court and in-depth interviews with individuals who have suffered personal injuries but have not necessarily chosen to assert a claim. Additional interviews with monks, doctors, village leaders, lawyers, judges, litigants, and other observers who can comment on practices and perceptions will supplement the analysis. This research will expand our understanding of the myriad of injuries, claims, negotiations, mediation, and litigation. %%% This research explores legal consciousness and personal injury in a Southeast Asian society radically transformed by globalization. It explores concepts of self and community, injury and remedy, legal and non-legal responses to harm, and ideas about causation and responsibly in Chiangmai, Thailand. The research represents an unusual opportunity to address questions about law, social change, and civil litigation that are fundamental to the field oaf law and social science and to extend such questions beyond conventional frameworks by asking how the intensification of global interactions affects litigation and other practices and perceptions of personal injuries. Methods being used to collect data include textual analysis of personal injury casefiles in the provincial court and in-depth interviews with individuals who have suffered personal injuries but have not necessarily chosen to assert a claim. Additional interviews with monks, doctors, village leaders, lawyers, judges, litigants, and other observers who can comment on practices and perceptions will supplement the analysis. This research will expand our understanding of the myriad of injuries, claims, negotiations, mediation, and litigation.